Workshop on Networked Sensing, Information and Control; Boston, MA, Winter 2006

Proposal to Fund an International Workshop on
Networked Sensing, Information and Control
Support is requested for organizing an international workshop on networked sensing,
information and control. The workshop will be held in Boston area over two days, Friday
and Saturday, in Jan-Feb 2006 time frame. The meeting will be organized around the
technical domains dealing with informational and mathematical aspects of networked sensing.
On account of breadth and diversity of work in this topic, we expect very broad interest
and participation from the systems community (systems and control, signal processing and
information theory). We are requesting $49,500 in funds to support travel and subsistence
for workshop participants.
Intellectual Merit: The aim of the proposed workshop is to bring together researchers
studying informational & mathematical aspects of networked sensing systems. The impor-
tance and timeliness of this workshop is evidenced by the explosion of several independent
special sessions devoted to specific aspects of sensor networks in reputed international confer-
ences. Despite these efforts the focus has been on specific and isolated aspects of networked
sensing and there is a need for cross-disciplinary efforts to integrate ideas from the various
research communities. The workshop will bring together internationally reputed researchers
from control, information theory and signal processing focused on the common theme of
distributed sensing, inferencing, and control over networks.
Broad Impact: On account of the contemporaneous nature of the topic, we have no doubt
that there will significant interest evinced by the both the research and industrial community
at large. The workshop will organize panel discussions to address gaps between educational
curricula and research, as well as between industry and academia. We will also attempt to
organize panel sessions focused on identifying critical divides between the different research
communities and constructive ways of bridging these gaps. The workshop will disseminate
the outcome of the workshop through publication of a volume of papers and essays edited
by the organizers as well as some members from the program committee.